Linear and Nonlinear Multichannel Scattering

There are two main topics of research in this proposal, first, the
large time behaviour and scattering theory of nonlinear Schrodinger
waves off a potential term which supports many bound states. This leads
to the analysis of multichannel nonlinear scattering and metastability
of hamiltonian dispersive equations. The second topic involves the study of
radiation damping for metastable mutltibreather solutions of the wave
equation. The large time behaviour of the linearized wave equation around
multibreather solutions is analyzed; a theory to estimate the lifetimes
of perturbed multibreather solutions is developed and applications
to nonlinear optics, in particular optical guides with non-uniform diffraction
profiles.

The use of optical devices and fibers in today's communication systems
motivates some of the problems studied in this proposal. In particular
we concentrate on the problem of effects of defects and other irregularities
in optical fibers on their transport properties. We also analyze some
novel optical devices made by modifying the medium in a way to achieve
better filtering of noise and interchannel interference.